WGIDPO: Weaving Gender Equity into Math Reform

Over a three year period, TERC and the University of California, Santa Barbara will collaborate with leaders of highly-acclaimed mathematics staff development programs for elementary teachers to infuse a thoughtful, well-integrated emphasis on gender equity into these programs. Materials for these projects will be revised, and new workshop sessions focusing on equity will be created. Project Results: 1. A new emphasis on gender equity being incorporated into the most visible and well-attended reform math workshops in the country. 2. For staff developers and workshop leaders, an increased understanding of ways of incorporating equity issues into workshop discussions and activities. 3. The development of new workshop sessions on topics such as "gender, technology, and math reform" as extensions, supplements, follow-ups or "replacement units" for collaborators to add to their existing workshops. 4. For the over 13, 600 elementary teachers attending match workshops each summer, an increased awareness of how to make equity a central focus of their work with reform math.